Connection of The University of the Arts to the Internet

Abstract ANIR - 9810396 PI: Virginia Red The University of the Arts Philadelphia, PA The University of the Arts is connecting to the Internet using a T1 line. Internet access will enable the university to increase available information resources in undergraduate courses, provide professional training for teachers in K-12 classrooms to take advantage of new tools and resources available across the state; and to expand their training in multimedia-intensive museum exhibitions at the graduate level. The award provides partial support of the project for two years.